Equipment and Software for Long-term Laboratory Projects in Molecular Biology Courses and for Undergraduate Independent Research

9451455 DiBartolomeis Through two courses in molecular biology and genetics followed by independent research, undergraduate students are getting a thorough background in techniques commonly used in molecular biology and the practical knowledge of how to apply these methodologies for working through long-term laboratory projects. An inquiry based mode of approach is emphasized throughout.